Computer-Aided Design for Demanufacturing and Remanufacturing

9414715 Bras The focus of this research is to enhance environmentally safe disposal/recycling by facilitating the inclusion of product take- back considerations in product design. Demanufacturing and remanufacturing are the names of processes intended to enable both material recycling and product reuse. Demanufacturing characterizes the entire process involved in recycling, reuse, incineration, and/or disposal of a product after it has been taken back by a company. Remanufacturing deals with the refurbishment of partly worn products for their subsequent reuse. Due to the complexity of formulating systematic design approaches that include environmental, economic, and technical considerations, the objectives of the research are to establish an engineering science base for: (1) the operational parameters and models of plastic-metal product de- and remanufacturing processes, and (2) computer-based tools for the computer-aided design of these products which can be recycled and reused through de- and remanufacturing processes.